Understanding the Biology of Sex and Gender Differences

Wood, Susan M.
IBN-9912031

The status of research on sex and gender difference is of strong interest to federal agencies and to the private sector which have expanded their research portfolios to include an enlarging focus on women's health. Understanding the biological basis of sex and gender differences is of increasing importance in the design and conduct of basic, translational and clinical research and throughout the continum of personal and societal development and healthcare. Defining differences between males and females extends beyond primary and secondary sexual characteristics and encompasses characterizing the biological, psychosocial and pharmacological functions of males and females across the lifespan.